Career: Combinational Approximation Algorithms

The grant supports research in the design and analysis of algorithms and improving the education infrastructure at the PI's department. The research focuses primarily on the following areas: (i) fast approximation algorithms for intractable (NP-hard) problems; (ii) fast approximation algorithms for very large problems requiring nearly linear- time solutions; (iii) competitive analysis of on-line caching problems. The style of research emphasizes the following: (i) general techniques for understanding, unifying, and simplifying large classes of algorithms; (ii) theoretical measures that are more realistic than either the standard worst-case or average-case models; (iii) empirical studies of new algorithms demonstrating their effectiveness. The education plan consists of the following. (i) Developing a training course for a core group of advanced undergraduates who will them lead small weekly discussion sections in the introductory courses. (This will simultaneously improve the introductory courses and provide a training ground for students to become educators.) (ii) Working with an outside evaluator to extensively evaluate the experience of majors and prospective majors. Two primary goals are to determine the effects of the aforementioned discussion sections (both on the students in the sections and those leading them), and to identify reasons for the low rate of retention of women undergraduates by the department.